Wide Area Technical Report Server

This award supports the implementation and testing of a prototype computer system that will allow CISE departments connected to Internet, electronic access to technical and research reports. This is a collaborative effort between Old Dominion University, Virginia Polytechnic University, SUNY at Albany, and the University of Virginia. A workshop was held at Snowbird'92 to formulate the initial recommendation. The proposed system will consist of a central index to be kept on dual servers which will store relevant information in an easily accessible format. Each participating site will locally store its own reports and will handle index interactions between the central site and the central index facility. The prototype system will be implemented at the four collaborating institutions. Testing of the proposed prototype will also include user testing and evaluation of the performance and scalability of the system.